Reinventing College Algebra: A Revised Curriculum ExploitingTechnology, Unifying Themes and Laboratory Experiences

9354823 Becerra The objectives of this project are: (1) development of a unified course syllabus for College Algebra which has as its nucleus the process of modeling in diverse settings via elementary functions and systems of equations; (2) integration of technology as a fundamental medium for learning and doing mathematics in College Algebra; and (3) incorporation of laboratory experiences into College Algebra which promote problem solving skills and a collaborative and highly interactive learning environment. The implementation of these ideas is through the development of a series of laboratory modules which can be taught in conjunction with any text. The versions produced can be used with current standard technologies including graphing calculators, Mathematica and Maple. To support these modules, packages of high-level functions are developed which promote visualization and simplify numerical and symbolic computation. Interested faculty at other institutions are able to easily incorporate these modules into their college algebra courses. A revised College Algebra curriculum which exploits technology and laboratory experiences addresses some critical concerns of national interest: developing higher level thinking skills in students, increasing the mathematical literacy of students and in particular non-science majors, and incorporating teaching delivery styles which aid in the recruitment and retention of minorities into the mathematical sciences. ***y